The Las Campanas Fiber-Optic Redshift Survey

The Principal Investigator on this research grant will be continuing a galaxy redshift survey which will be used to study the large-scale structure distribution of galaxies. He is making use of spectrograph that was specifically developed for this project. This spectrograph is able to record the spectra of 112 objects at one time. About 12,000 galaxies have been measured to date, and the purpose of this award is to continue this survey for another three-year period. The Principal Investigator is recognized throughout the world for his capabilities in this research area.